EntryPoint: Creating a Better Start for Students in Computing Degrees

Computer Science (31)

In spite of tremendous attention, the existing models for the introductory courses in computing majors remain problematic and dominated by programming courses. EntryPoint seeks a better approach for the first two years of undergraduate computing programs - an approach that is improving both program appeal and student success. EntryPoint is working with curricula for information systems (IS) and information technology (IT) majors, and is being designed to expand to other computing disciplines.

The EntryPoint project includes the following elements:

Developing new learning materials and strategies - The project team is developing a completely new introductory programming sequence to replace an existing CS1/CS2 style sequence for IS students.

Evaluating - The new introductory programming courses are being used to test and evaluate new ideas for teaching introductory programming.

Creating a New Model for Introductory Computing Curricula - The project team is redesigning the first two years of the curriculum. This model substantially departs from the programming first model that has dominated computing education for decades. Instead, EntryPoint is developing a "computing-first" model that emphasizes the computing discipline as the primary framework for initial study.